Travel: Student Travel Grant for 2026 Computational Geometry Week

The International Symposium on Computational Geometry (SoCG) is the oldest and most influential international conference in computational geometry. The premier event in the field, SoCG brings together researchers from all over the world to report on the state of the art in the fields of computational geometry and many related disciplines. The annual SoCG conference is now part of Computational Geometry Week (CG Week), which incorporates workshops and the Young Researcher Forum, as an effort to further broaden participation and visibility of the community. Research in geometric computing has had broader implications in technological development in many areas of engineering and science, including computer vision, geographic information systems, entertainment, virtual reality, graphics, manufacturing, networks, and geometric data processing. The computational geometry research community is truly international, with significant representation on at least five continents.

CG Week 2026 (including the 42nd annual SoCG) will be held on the Rutgers campus in New Brunswick, New Jersey. While Rutgers is relatively accessible from most of the USA, the cost of travel is prohibitive for many students and young researchers at institutions outside the greater New York area. This project subsidizes travel to CG Week in New Jersey (June 2-5, 2026) for US-based student participants to engage in the important technical, professional, and social exchanges that SoCG fosters.